Inverse Scattering Theory

DMS-0071398

The project contains five research problems:
1. Analytic properties for scattering/inverse scattering
transforms.
2. Perturbation on NLS.
3. Perturbation for Toda lattice.
4. Random matrices.
5. Multiple orthogonal polynomials.
All these problems will be studied via the Riemann--Hilbert
problem approach, which has shown tremendous potential in
solving various integrable problems in broad sense.

This project analyzes several mathematical problems ranging
from partial differential equations, random matrices, to the
approximation theory. Some of these problems have pure mathematical
interest and others have applications in physics and engineering.
One of such applications is the soliton solutions of the perturbed
nonlinear Schrodinger equation. These soliton solutions are used
in the fiber optical transmission.